Verification of Security Run-Time Verification Systems

Proposal #: 0341734
TITLE: Verification of Security Run-Time Verification Systems
PI: Karl N Levitt
CoPI: Raju Pandey

Through runtime verification (RTV) a system's behavior is checked
against a specification. Almost always, specifications are easier to
create and are more efficient in execution than code, thus making RTV an
appealing approach to determine if a system is performing as expected.
This project addresses new aspects of RTV: (1) to detect security
incidents using the technique of specification-based intrusion detection
originally developed at UC Davis, (2) to check that response measures
taken to mitigate an attack in progress and to effect recovery perform
as expected, (3) to use automated formal methods (i.e., ACL2) to
verify the specifications for RTV with respect to overall security
policies, (policies will be developed for Unix privileged programs
and for numerous network protocols), (4) to seek a general approach
to RTV that unifies security and fault tolerance, and (5) to use the
NASA test-bed to run experiments on an RTV (security attacks and
natural faults) to identify components of the specifications that are
needed in practice and to develop metrics for the effectiveness of
RTVs, e.g., false positive and false negative rates.